Calibration and Tracking Subsystem for the QWEAK Experiment

The research proposed here seeks the answer to one of the fundamental
questions about our understanding of matter; i.e. is there any new physics
beyond the Standard Model of electroweak physics. The QWEAK experiment at
Thomas Jefferson National Accelerator Facility addresses this question by
measuring the proton's weak charge via parity-violating electron scattering
at very low momentum transfer. The proton's weak charge, which is its
coupling to the neutral Z boson, has a well-defined prediction in the
Standard Model; and a precise measurement of this charge is sensitive
to many popular scenarios for extending the Standard Model.

The Virginia Tech group is responsible for an essential component of the
particle tracking system, two sets of drift chambers. This system is
required in order to precisely measure the kinematics of elastically
electrons, as well as for critical studies of experimental backgrounds.
Participation by one graduate student and two undergraduate students
under the supervision of a faculty participant and funded by this grant
will provide essential resources for timely completion of this project,
and will substantially enhance their educational experience and training.